ITR: Strategic Software Design: Value-Driven Software Definition, Development, Deployment and Evolution

Current software design concepts for products, processes, projects, programs, portfolios, and policies largely overlook a simple but fundamental idea: the goal of software design decision making is to create the maximum value added for any given investment of valuable resources. In a business context, profit and opportunities to profit are most valued. In other context, other measures of value apply, such as the solution of major social problems by philanthropic foundations. The investigation will focus on developing and enhancing scientific foundations for software design decision-making models, methods and tools explicitly tied to value-maximization objectives. Strategic approaches to value creation under conditions of uncertainty, incomplete knowledge, competition, and the need for cooperation among self-interested stakeholders will receive particular attention. The research is a joint effort of the University of Virginia, Carnegie Mellon University, the University of Washington, and the University of Southern California.